CQIS: Representation theory in quantum computation

Quantum computers promise to solve problems far beyond the reach of today's most powerful machines, but the quantum information they process is fragile and easily destroyed by noise. Topology, the branch of mathematics that studies features of a shape that persist when the shape is bent or stretched, offers a strategy for protection. Information stored in the global patterns of a quantum system is naturally shielded from small local disturbances. One leading approach encodes information in exotic particles called anyons and computes by braiding their paths around one another, so that the outcome depends only on the overall pattern of the braid. This project will develop topology and representation theory, the mathematics of symmetry, into tools for this form of quantum computation. The research will determine which topological systems can deliver the full power of a quantum computer and will provide mathematical methods for programming them. The project will also train graduate students and postdoctoral researchers at the interface of mathematics, physics, and quantum information science. Results will be shared through publications, lectures, international workshops, and summer schools, strengthening the national workforce in the mathematical sciences and quantum technology.

This project will pursue representation-theoretic problems at the interface of low-dimensional topology, representation theory, and quantum computation, organized in three directions. The first direction will develop the foundations of non-semisimple topological quantum field theories for topological quantum computation. Recent work established that these theories make Ising anyons, a leading candidate for physical realization, universal for braiding-based quantum computation. Turning this universality into a practical computational framework requires new mathematics, and the project will study density of braid group images in noncompact unitary groups, Hermitian forms on categories of unrolled quantum group representations, control of leakage into indefinite sectors, and algorithms for approximating indefinite unitary transformations from finite gate sets. The second direction will bring Hodge Laplacian methods, central to a recent quantum algorithm for Khovanov homology, into higher representation theory. Equipping categorified braid group actions and Rouquier complexes with inner products yields Laplacians whose spectra encode information beyond homology, opening a spectral approach to braid word geometry and categorified quantum groups. The third direction will construct a topologically motivated circuit-to-Hamiltonian mapping from Turaev-Viro, Walker-Wang, and Crane-Yetter topological quantum field theories. This mapping will produce explicit local Hamiltonians whose ground states encode quantum computations and whose spectral gaps can be analyzed with topological and representation-theoretic methods.